Active Seismic Zones of Interior Alaska

Freymueller
9973189

This project is a continutation of an NSF project that began in 1997, which aims to study the tectonices of a seismically active area in the interior of Alaska. The principal goal of the present project is to determine the slip rate of the Denali fault using two fault-crossing GPS profiles. A dense profile situated near Denali National Park was established in 1997, while a sparser profile about 200km to the eat was established in 1998. The invesitgators will use the data from the two profiles to estimate the fault slip rate, which will be combined with data from sites in the deforming region north of the fault to develop a quantitative tectonic model for the region.